Oceanographic Instrumentation

A request is made to fund additional and back-up instrumentation on the R/V Roger Revelle, a 273’ general purpose Global vessel; the R/V Melville, a 279?general purpose Global vessel; the R/V New Horizon, a 170’, general purpose, Ocean/Intermediate vessel and the R/V Sproul, a 125’ general purpose Coastal/Local vessel. All four vessels are operated by Scripps Institution of Oceanography as part of the University-National Oceanographic Laboratory System research fleet.

Both R/V Roger Revelle and R/V Melville are Global vessels and support multidisciplinary oceanographic research in all of the world’s ocean basins. R/V New Horizon focuses primarily on offshore California but has been used for work throughout the Pacific. The primary working area for R/V Sproul has been the continental shelf and coastal environments off Southern California. In 2013, R/V Roger Revelle is scheduled for 247 days with NSF days accounting for 31% of the total sailing schedule; R/V Melville is scheduled for 316 days with NSF days accounting for 44% of the total sailing schedule; and R/V New Horizon is scheduled for 157 days with NSF days accounting for 50% of the total sailing schedule. R/V Sproul, a vessel owned by the State of California, has no NSF days in 2013 and only one day currently funded on the vessel.

Oceanographic Instrumentation requested in this proposal includes

RDI 150 KHz OS ADCP $66,110
H2000 ROV Spares $21,567
H2000 ROV Cable and Modifications $57,081
10m2 MOCNESS Components $46,279
TOTAL $191,037

Broader Impacts
The principal impact of the present proposal is under criterion two of the Proposal Guidelines. They provide infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.